A JILA Initiative in Theoretical Atomic, Molecular, and Optical Physics

***
9802642
Greene
The JILA Initiative in Theoretical Atomic, Molecular and Optical Physics provides a center for the community to hold workshops, to support visitors, for a postdoctoral research fellow and for research in Bose-Einstein condensation and cold atom collisions.
***